Controlled Surgery

This proposal concerns two topics in controlled surgery. The first is a
homotoy-theoretic approach to controlled surgery on Poincare spaces of
dimension 4 and greater. This provides input for a limit construction
of homology manifolds. The principal new conclusion would be
construction of exotic homology manifolds in dimension 4 (the
Bryant-Ferry-Mio-Weinberger construction works in 6 and above) and, via
a known resolution theorem, a proof of the 4-dimensional topological
surgery conjecture. The second topic is a variation on surgery groups
making use of controlled K-theory. This should have better formal
properties, for instance should more often satisfy the Farrell-Jones
isomorphism conjecture.

This proposal concerns controlled surgery on Poincare spaces. Poincare
spaces have global homological duality similar to that of manifolds.
Given a map to a metric space one can measure the "size" of the duality
structure: how far one must go to find dual cycles. Manifolds have
duality with size 0 because duality follows from the local structure.
Poincare spaces generally have no constraints, so the size is the
diameter of the control space. The key part of the proposal is a
size-reducing process: given a Poincare space with duality of size
epsilon, find an equivalent Poincare space with much smaller size
control. The approach proposed should work for spaces of dimension 4
and above. In this case it would provide input to an elaborate but
already established argument to give a proof of the 4-dimensional
topological surgery conjecture. This conjecture is the major unresolved
problem in topology in dimension 4.